Paleontological Investigation of Middle Eocence Primate- Bearing Fissure-Fillings in Southeastern China

Preliminary excavations in Southeastern China by this productive young principal investigator and his colleagues have yielded very exciting fossil remains of a number of heretofore unknown primate (and other mammalian) species from the Eocene. This is an entirely new biogeographic region, and the project holds out the promise of providing a critical piece of the story of early primate evolution. This project will now be expanded in scope and intensity.